Participation in the American Linear Collider Workshop by Young Physicists; Ithaca, NY; July 2003

The proposal is a request for support to enable young physicists to attend the American Linear Collider Workshop. It will take place from July 13-16, 2003 at Cornell University, Ithaca, NY. The funds will be used entirely to support the travel, lodging and registration expenses of graduate students and young scientists who otherwise could not afford to attend the meeting.